Biodehalogenation: Chemistry and Mechanism

The objective of this project is to identify and characterize organisms that can dehalogenate organic substances that are present in soil, water and wastewater. Research involves determination of the metabolic pathways by which organisms accomplish dehalogenation, reaction rates and metabolic end products. The investigators plan to isolate the enzyme(s) responsible for dehalogenation and establish the chemical mechanisms by which they accomplish this. The engineering goals to which this project is responsive relates to the development of processes and methods for removing alkyl halide pollutants from locations where they constitute a threat to water, land and soil quality. Concepts toward which this research is directed may constitute the basis for engineering design of systems to decontaminate environmental resources.